QEM STEM Leadership Development Project for Tribal Colleges and Universities

Abstract

QEM STEM Leadership Development Project for Tribal Colleges and Universities

The Quality Education for Minorities (QEM) Network is requesting a three-year grant from the
National Science Foundation in support of leadership development in Science, Technology,
Engineering, and Mathematics (STEM) at the Nation.s Tribal Colleges. QEM.s proposed project is
designed to further the goals of the Foundation.s Tribal Colleges and Universities Program (TCUP).
Due to the special circumstances and needs of Tribal Colleges, the proposed project.s activities
focus on the Tribal Colleges. However, all institutions eligible for TCUP will be invited to participate
in project activities.

Intellectual Merit
QEM.s STEM Leadership Development Project will provide Proposal Development Workshops for
prospective TCUP applicants as well as Project Management Institutes to support current multi-
year grant recipients with project implementation. Professional development activities for Tribal
College faculty and a Visiting Faculty Program will stimulate faculty growth and expand STEM
teaching capacity. Materials to be produced include a "Best Practices" manual and a monograph
on scholarly productivity. Collectively, these activities provide an intensive level of support for Tribal
Colleges and Universities that support the goals of the TCUP program.

Broader Impact
The proposed STEM leadership development activities are designed to help increase the quantity
and quality of TCUP proposals submitted by Tribal Colleges, and participating Alaska Native and
Native Hawaiian institutions. The project implementation and professional development activities
will benefit participants well beyond the life of the grant through resource development and the
enhancement of STEM faculty. Since TCUP grants address substantive educational areas such as
faculty development, curriculum enhancement, and undergraduate training and research
experiences, this project has the potential for considerable impact on STEM educational
experiences for Native American students nationwide.